Vector Bundles and their Interplay with Representation Theory and String Theory

Professor Qin will work in the general area of algebraic
geometry and its interplay with representation theory and
string theory. The main tools are the Hilbert schemes of
points on projective surfaces, techniques of vertex algebras,
quantum cohomology, the moduli spaces of Gieseker semistable
bundles on surfaces, and the holomorphic Casson invariants
for Calabi-Yau three folds. The investigation should increase
the knowledge about the relations among Hilbert schemes, vertex
algebras and quantum cohomology, and shed light on stable
bundles over Calabi-Yau three folds and the S-duality conjecture
from physics in the form formulated by Vafa and Witten.

Algebraic geometry studies geometric objects described by
polynomial equations. It has been at the central stage
of recent confluence between mathematics and physics.
Many of these interactions have led to profound improvement in
the understanding of both mathematics and physics.
Professor Qin's research areas provide solid mathematical
foundation to the physics theories which are vital to explain
the universe.